Locally Hermitian symmetric spaces, non-positive curvature and complex hyperbolicity

Abstract for DMS - 0104089

The focus of the proposal is on the research of locally Hermitian symmetric
spaces of non-compact type, considered as special complex manifolds of
non-positive sectional curvature. Complex hyperbolicity can be considered as
a weak notion of negative curvature. From analytic point of view, the
principal investigator proposes to work on the rigidity of tangent bundles
among the moduli space of vector bundles of locally Hermitian symmetric spaces.
From the uniformization point of view, he proposes to work on characterization of
arithmetic lattices in complex two balls. He proposes to investigate the analogue
of Fijita's conjectures concerning very ampleness of pluricanonical line bundles
on such manifolds, relating to algebraic geometry. He proposes to understand and
estimate the growth of Betti numbers on a tower of coverings naturally associated
with the manifolds, relating topology to geometry. In the direction of number
theory, he proposes to study the question on finiteness of rational points on
models of two ball quotients defined over an algebraic number field. He also
proposes to work on several other problems in the area of complex hyperbolicity
and Kaehler geometry, relating to his earlier research directions.

In mathematics, people are interested in models which on one hand are elegant
and relatively simple to describe and on the other hand display rich mathematical
structures. Locally Hermitian symmetric spaces are such nice geometric models for
which different disciplines of mathematics meet. The main purpose of this
proposal is to understand several geometric and arithmetic aspects of such models
and explain their interrelationships. Understanding of the various properties
and problems proposed will enhance the knowledge of the subject and other
disciplines of mathematics involved.